Enveloping Algebras, Differential Operators and Quantum Groups

Musson, 98-01151 Abstract This proposal will deal specifically with several problems concerning primitive ideals in the enveloping algebra of a classical simple Lie superalgebra. The methods to be used include those developed by the PI and results from representation theory. In addition geometric methods will be used to study the center of the enveloping algebra, and the associated variety of a primitive ideal. Differential operators on invariant rings of tori are studied in a forthcoming joint memoir with Michel van den Bergh, and we hope to extend some of this work to actions of other reductive groups. The PI also plans to study Hopf algebra duality and cliques in quantum function algebras. He also plans to study nonstandard quantum groups such as the Cremmer-Gervais examples. There is motivation from Physics for this line of research since differential operators which are invariant under various groups of symmetries are important in quantum mechanics. Finally, quantum groups have become extremely important in recent years in both Mathematics and Physics. Numerous connections have been found with such diverse areas as group theory, low dimensional topology, combinatorics, number theory, conformal field theory and statistical mechanics.